Arithmetic, Geometric, and Ergodic Aspects of the Theory of Lie Groups and Their Discrete Subgroups

Abstract
Margulis

The problems addressed in this research proposal are in the area of the theory
of Lie groups and their discrete subgroups. The common theme is to study this
theory in connection with number theory, geometry and ergodic theory. One of
the main objectives is to continue the program of establishing a homogeneous
space approach as a powerful tool in number theory and, in particular, in the
theory of Diophantine approximations. It is also proposed to study a variety of
questions about actions of Lie groups and their discrete subgroups on
homogeneous spaces, manifolds and general metric spaces. In particular the
principal investigator plans to continue his joint work with other
mathematicians on properly discontinuous groups of affine transformations and on
local rigidity for standard algebraic actions. The technique of Lie group
theory, reduction theory, ergodic theory and the theory of dynamical systems
will be used throughout the proposed work.

The theory of Lie groups and their discrete subgroups is one of the central
fields in mathematics. Historically this theory was mostly motivated by its
connections with geometry, mechanics and the theory of differential equations.
During the last 15-20 years it was realized that some aspects of the theory can
be applied to solve certain problems in number theory and related topics, which
could not be tackled by other methods for several decades. It is suggested in
the proposal to continue this development in order to obtain new applications in
number theory, dynamical systems and geometry. In general, the proposal should
establish new connections between discrete and continuous in mathematics.